Engineering Research Equipment: Chemical Vapor Deposition System

This award will allow acquisition of a chemical vapor deposition system for use in low temperature deposition of thin coatings of refractory metal carbide and nitride films. The friction and wear behavior of these films, as well as their resistance to particle erosion, will be studied as functions of deposition parameters and film composition.